Development of the Curriculum Data Base (CDB) for Undergraduate Education

This action represents an interagency transfer of funds from the National Science Foundation (NSF) to the National Endowment for the Humanities (NEH). These monies, along with monies from the NEH, will provide for completion of the project, "Development of a Curriculum Data Base for Undergraduate Education," to be conducted by the Association of American Colleges (AAC). NEH will let a sole-source contract to AAC to undertake this effort. NEH will also administer the contract for NSF and itself. The project will provide transcript, demographic, and academic information, in the form of an accessible data base for NSF researchers, on about one million of the nation's undergraduates. NSF's funds are to allow for inclusion of those data which apply to science and engineering (S/E) majors, as well as those students who are not majoring in S/E but take courses in science and engineering.